Partial Support of the International Seismological Centre

0128053
Willemann

This grant provides four years of continued support for the operation of the International Seismological Centre (ISC) affiliated with Oxford University. The ISC is supported by 50 member organization around the world for the production of a global summary of earthquake hypocenters, magnitudes, arrival times and other phase measurements. ISC also compiles an annual Bulletin of these data after further analysis of the data. The Bulletin provides a comprehensive database of refined earthquake hypocenters with redundant and suspected erroneous data filtered. The Catalogue and Bulletin are available via CD-ROM to researchers worldwide interested in earthquake hazards, seismotectonics , global tomography and earthquake physics. All ISC data are also now available via the internet.
***